Four-Day Workshops on K-14 Education for Geoscientists

0085543
Morrow

The PI and associates will conduct three annual 4-day workshops on K-14 education, with a focus on recruiting geoscientists from around the nation to participate. They will develop a collection of follow-up activities (surveys & interviews, newsletter, and web-based resources) that will motivate, inform, and sustain a network of workshop alumni in K-14 geoscience education. Over the course of this three-year project at least 150 scientists and educators will participate in this network. The goals of the proposed project are: to build and maintain a national cadre of well informed geoscientists who can act as advocates and leaders for effective science education, and also as role models for scientific colleagues who become involved in improving K-14 geoscience education; to strengthen and increase the effectiveness of the education activities presently (and soon-to-be) underway in the geoscience community; and to provide geoscientists who are active in K-14 education with an opportunity to showcase their work and network with educators and other scientists involved in education.